CISE Research Instrumentation

A VLSI Design and Test Facility will be provided for researchers at the University of Pittsburgh for research in the departments of Electrical Engineering and Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer Science and Engineering program. The research for which the equipment is to be used will be in the area(s) of human guided incremented silicon synthesis, and an integrated design verification workbench.